Material Logistics Issues in Semiconductor Manufacturing

The increasingly competitive nature of world markets and producers has placed a considerable burden on semiconductor manufacturing companies within the United States. There are many factors which have forced semiconductor manufacturing companies to evaluate their strategies carefully. In the examination of how new manufacturing technologies and processes will perform, the following questions often arise: Is there sufficient capacity in the proposed system? What will happen if the product mix changes? Will the new technology really reduce manufacturing lead times? Will inventory levels go down, or will they actually increase? What will resource utilization rates be over a range of market forecasts? Will the rules we are considering for controlling inventories and dispatching jobs really work? Models and a prototype decision support environment will be developed that can be used in answering these and other questions related to the design and operation of their material logistics systems. Primary goals are to develop models and software to plan and schedule production and to understand and control stochastic variability, and to use previously developed computer graphics modeling and simulation software to evaluate planning methods, scheduling rules, and dispatching rules for manufacturing resources. Work shall be closely coordinated with IBM's East Fishkill semiconductor fabrication plant to develop and test these models and software.